The Novikov and Exactness Conjectures for Discrete Groups

Abstract
Guentner

The proposed research comprises two distinct projects; the
relationship between the Novikov and exactness conjectures for
discrete groups, and the use of global analytic techniques to study
quantum mechanical systems. The first is motivated by the observation
that the classes of groups for which the Novikov and exactness
conjectures are known coincide to a large degree; both classes contain
amenable groups, hyperbolic groups and Coxeter groups, for example.
This project is joint with J. Kaminker. The second is based on the
idea that the Berezin-Toeplitz quantization can be analyzed using
spectral properties of family of Dirac-type operators. This project
is joint with J. Trout.

The Novikov conjecture, one of the most important problems in
topology, has stimulated a tremendous amount of mathematical research
over the last thirty years. The exactness conjecture is purely
analytic. That there could exist a connection between these two
conjectures from entirely different branches of mathematics is
somewhat surprising, but nevertheless is supported by empirical
evidence. We plan to develop more fully the relationship between
these conjectures. This research has bearing on a number of important
outstanding problems including the Baum-Connes Conjecture. At the
heart of the connection between mathematics and physics is the theory
of quantum mechanics. We propose a new method to analyze quantum
mechanical systems based on geometric properties of certain systems of
differential equations. This work should lead to a better
understanding of a number of quantum mechanical systems from
mathematical physics.